Equipment: MRI: Track 1 Acquisition of an Illumina NextSeq 2000 to Support Genomics Research and Training Capacity in South Dakota

Modern scalable technologies are rapidly accelerating our ability to understand biological systems encoded at genomic scale and address challenges in agriculture, environmental sustainability, and human well-being. This project will support the South Dakota State University (SDSU) Genomics Sequencing Facility (GSF) through the acquisition of an Illumina NextSeq 2000, a state-of-the-art short read sequencing platform. The NextSeq 2000 instrument will provide researchers, educators, industry partners, and students with access to modern, high-throughput sequencing capabilities critically to investigate fundamental questions in plant, microbial, animal, soil, and human genomics. Equally important, the project will strengthen education and workforce development by providing undergraduate students, graduate students, postdoctoral researchers, industry partners, and technical staff with hands-on training in genomics, biotechnology, and bioinformatics. These experiences will prepare the next generation of scientists and professionals for careers in rapidly growing genomic enabled STEM fields.

The NextSeq 2000 will enable the sequencing of DNA and RNA samples with output in a single run ranging from 100 million to 1.8 billion single end reads in compatible flow cell configurations, providing the much-needed scalability required by researchers from South Dakota State University and collaborating institutions. It will also support emerging technologies such as single-cell genomics and spatial transcriptomics in various integrated projects, allowing researchers to examine biological processes at tissue scale barcoded sequencing at the tissue scale through barcoded sequencing combining histology and deep sequencing. By providing local access to advanced sequencing technology, the project will significantly reduce costs and turnaround times associated with outsourcing sequencing services, thereby accelerating scientific discovery, preserving data confidentiality, and enhancing the competitiveness of South Dakota State University. The instrument and associated expertise will serve a broad interdisciplinary user community spanning plant sciences, biotechnology, microbiology, biochemistry, agriculture, bio-engineering, and health-related disciplines, paving path for nurturing new collaborations and innovative interdisciplinary research initiatives that go beyond state of the art. The advanced research infrastructure supports NSF priorities in biotechnology by enhancing genomics research capacity and enabling innovative research across multiple life science disciplines. Sequencing technologies are at the forefront of biotechnological inventions and increasingly incorporate artificial intelligence (AI) based approaches for gene regulatory network analysis, prediction, and prioritization. The proposed training, support, and outreach activities will incorporate these emerging technologies, thereby aligning with current NSF priorities.